RUI: Stability and Dynamics of Self-Similarity in Evolution Equations

Self-similar behavior is evident in many physical systems including
the rupture of thin films, the pinching of thin liquid threads or
solid necks, and the spreading of liquid drops. This research seeks
to increase the understanding of self-similarity by viewing the mathematical
models for these phenomena in the context of dynamical systems theory.
Self-similar solutions can be thought of as steady equilibria in a
rescaled coordinate system that is "zooming" to match the scale of
the phenomena. Most of these models have an infinite number of
self-similar solutions. The foremost goal of this project is the
development of a stability theory that will identify which solution is
dynamically selected by the model.

The ideas developed in this project will provide mathematicians,
engineers and physicists with a set of tools for analyzing
self-similar dynamics. A phenomenon is self-similar if it appears to be
unchanging once the time scale is suitably accelerated or slowed down
and the spatial scale is also adjusted. For example, integrated circuits rely on the
deposition of thin metallic traces on a substrate; this research
will help determine when these traces will break during fabrication
and elucidate the details of how the break occurs, since there is often self-similar
behavior near the critical event. Thin fluid films are created in the application
of paint, adhesives and optical coatings; the techniques developed in this
project should describe when and how films rupture and help devise
strategies for preventing these defects, which often develop in a self-similar way.
This grant will also underwrite the research of Harvey Mudd
College undergraduates who will become an integral part of this investigation.